The Algebra of Spectra, Group Actions, and Classifying Spaces

9971953
Wilkerson
Wilkerson will continue his work with Dwyer on the extended Steenrod
problem of understanding spaces with properties at a prime similar to
those of the classifying spaces of connected compact Lie groups. He will
also work with Jeff Smith on homotopy automorphism groups of finite
nilpotent complexes and actions of finite groups on such complexes. In
addition, he will work with Jim Turner and Avramov on analogues of the
Serre theorem that establishes that non-trivial simply connected finite
complexes have nontrivial homotopy in an infinite number of dimensions.
McClure will work with Jeff Smith on higher centers of associative ring
spectra. He will also investigate a large class of spectral sequences
that should admit chain-complex models that facilitate calculation. A
step in this project that should be interesting in its own right is to
show that certain homotopy categories of module spectra can be modeled by
chain complexes. Shipley will develop a new model for equivariant stable
homotopy theory; this will provide algebraic models for rational
equivariant stable homotopy theory over compact Lie groups. She will
also study (with Dwyer) a cobar spectral sequence and its convergence
properties. With Rezk and Schwede she will study a way to replace
arbitrary model categories by simplicial model categories. Smith will
continue his work on using the theory of model categories as a tool
for the study of ring spectra and of commutative ring spectra. In
particular, he will study the homotopy theory of ring spectra over a
fixed ring R, the homotopy theory of coalgebras of R-bimodules, and the
bar construction. He will improve his theory of combinatorial model
categories to make it a more effective tool. In joint work with Adem he
will study the homotopy theory of group actions on homotopy products of
spheres.
As can be seen from this summary, this project will involve research
in many different directions within homotopy theory. Several of the
problems to be investigated have been important for a long time (for
example, the Steenrod problem and the joint work of Smith and Adem go
back to the 1960's), while others involve very recent developments
(especially the theory of strictly associative and commutative ring
spectra; Smith and Shipley were pioneers in this area, and McClure's
work makes heavy use of it). The joint work of McClure and Smith has
applications to mathematical physics, since it is closely related to
recent work of Kontsevich and Tamarkin on deformation quantization.
***